Evaluating Alternative Principles of Scientific Classification

Professor Hull is engaged in an investigation of two separate projects: the first concerns criteria for selection of taxonomic principles; the second concerns the processes by which science itself develops. While seemingly unrelated, Professor Hull is using the first study as a case for exemplifying his arguments concerning the processes of scientific development. Although the distance between alternative principles of biological classification and anything that might be considered "evidence" for them is great, empirical considerations can be brought to bear on the decision to choose one set of principles of classification over others. Professor Hull argues that the taxonomic principles that result in classifications that facilitate the discovery of natural regularities are preferable to those that do not facilitate such discoveries. Dr Hull is examining the recent literature in evolutionary biology to see what sorts of classification aid either phylogenetic reconstruction or the discovery of regularities in the evolutionary process. The results of these investigations will in turn be used to support the contention that the use that scientists make of each others work is central to the ongoing process of science.